CAREER: Generalized Search Technique for Indexing Complex Data

This project addresses two main challenges. The first is to produce a software development environment for easily generating indexing techniques for new complex data, e.g., maps, images, sound, video, sequences, documents, etc., with large database workloads. This is being done by (1) implementing a data structure called a Generalized Search Tree (GiST) in the context of an Object-Relational database management system, and (2) developing a graphical GiST visualization and debugging system. The second challenge is to undertake a rigorous mathematical investigation of how and when one can develop efficient indexes; this is referred to as a Theory of Indexability. Indexability theory is akin to complexity theory, which has guided software developers in understanding how and when one can develop efficient algorithms. The main distinction is that indexability focuses on space/time tradeoffs for indexes, and on the fundamental secondary-storage challenges involved in database indexing. Execution of this research agenda will produce a framework in which data domain experts (e.g., biologists, chemists, earth scientists, computer multimedia researchers, etc.) can (1) identify whether their workloads are indexable, and (2) if so, easily develop efficient indexes for their workloads, integrating these indexes with minimal effort into Object-Relational database management systems. An additional effort is to integrate the development environment into a curriculum for teaching both basic and advanced techniques in indexing and indexability. This curriculum includes the software itself, along with assignments being tested in undergraduate and graduate courses at Berkeley taught by the principal investigator.